Collaborative Research Proposal for a Friction Stir Processing Industry/University Cooperative Research Center

This award is for a planning grant for the establishment of a new multi-institutional Industry/University Cooperative Research Center (I/UCRC) for Friction Stir Processing. Nationally and internationally recognized leaders in the research and development of this novel metals joining and processing technology are located at the South Dakota School of Mines and Technology, Brigham Young University, the University of Missouri-Rolla and the University of South Carolina, bringing together these institutions to establish the Friction Stir Processing I/UCRC.

The proposed Friction Stir Processing I/UCRC will focus on furthering developments in the following fields of study for Friction Stir Processing/Friction Stir Joining of ferrous, non-ferrous, and metal matrix composite alloys: Friction Stir Joining; Friction Stir Microstructural Modification; Friction Stir Post-Processing; Friction Stir Structural Designs and Applications; Friction Stir Intelligent Controllers and Efficient Tooling; Friction Stir Cost Benefit Analysis.